Planning and Development of Regional Networks/Institutes for Global Change Research in Africa

9224448 Rosswall NSF support is provided from funds allocated for the planning, development and implementation of regional institutes for global change research. The International START Secretariat will undertake a series of scientific planning activities related to development of regional networks/institutes for global change research in Africa. START (the IGBP/WCRP/HDP System for Research, Analysis, and Training) will initiate scientific workshops and planning meetings, participation of scientists from the region in these and related activities, such as training courses for global change research. This effort will focus on sub-regional research networks for North Africa; Southern, Central Africa; and the Mediterranean region. This effort will also consider linkages among these sub-regional networks and between them and other similar regional activities in Europe, the Americas, and Asia.